Acquisition of a High-Field NMR Spectrometer

This proposal requests funds to obtain a 300 MHz Nuclear Magnetic Resonance Spectrometer. The instrument will be used for research in the following areas of biology, biochemistry, and molecular biology. 1. enzyme mechanisms and molecular bases of enzyme inhibition 2. mechanism of DNA cleavage by neocarzinostatin and related antitumor proteins 3. mobility of lipid membrane phases and action of anesthetic molecules 4. conformation of peptides with hormonal activity 5. metabolism and mechanisms of interconversion of retinoids in visual pigment biology 6. two-dimensional NMR studies of the conformation of peptide fragments of parathyroid hormone and humoral hypercalcemia factor The nuclear magnetic resonance spectrometer will be a truly significant addition to the Department's instrumentation capabilities, enhancing both current and future research efforts.